Equipment for Data Acquisition and Signal Processing Systemsto Improve Undergraduate Instrumentation Laboratories

Three data acquisition and signal processing systems will be provided to implement a novel improvement in undergraduate instrumentation laboratories. The new idea addresses the need to teach digital data acquisition and signal processing techniques such as: concepts of dynamic system response, data sampling, leakage, aliasing, transformation, and others to mechanical-engineering undergraduate students. In the newly designed instrumentation curricula, spectrum analyzers are being used much like oscilloscopes were used previously. This new approach to undergraduate instrumentation permits students to learn techniques currently used in industry. These principles will be taught not only in the class room environment but also through newly designed laboratory experiments in two undergraduate instrumentation courses. The equipment will provide the laboratories with three work stations consisting of personal computer controllers, data acquisition and signal processing peripherals, and appropriate signal conditioning and excitation hardware.